Proyecto de Implemetacion Amplia EarthSky en Espanol (EarthSky in Spanish Broad Implementation Project)

This Broad Implementation media project (building upon prior NSF award 0639001) will address science literacy among Latinos via mass media, increasing the amount of Spanish-language science content available in the U.S., increasing the representation of Latino scientists in mainstream media, and expanding the knowledge base about Latino's interest and engagement in science. The STEM content will be based on the research conducted by the Hispanic scientists being interviewed and therefore includes a wide range of topics including astronomy, biology, physics, earth sciences, and engineering. The criteria for selecting the Hispanic researchers and the content is based on the importance of the research, how it is immediately relevant to a Latino audience, and how it draws on the indigenous knowledge system or ethnic pride for U.S. Latinos.

Project deliverables include 150 audio-video interviews with Hispanic scientists distributed on both commercial Hispanic radio and TV stations, as well as public broadcasting and online. In addition to the broadcasts, social media tools such as Facebook and Twitter will be used to reach out and engage Hispanics. It is estimated that 300 Spanish-language radio stations will air the programs, resulting in 3 million radio impressions for each daily 60-second broadcast. Television broadcasts are estimated to result in another 2 million impressions per program. Project partners include the Society for the Advancement of Chicanos and Native Americans in Science (SACNAS); V-Me, a national Hispanic educational channel; KLRN, the San Antonio, Texas public television station that will provide the national PBS distribution; and DaGama Web Studio that will develop and implement the social media marketing plan to attract and engage Latinos online.

Comprehensive evaluations of project deliverables and impact will be conducted by Informal Learning Solutions (video-audio formative evaluations), and Knight-Williams Research (summative evaluation of project impact). The Summative Evaluation Plan will focus on the programs' overall appeal, clarity, and effectiveness in meeting the two key audience objectives in the proposal: (1) increasing familiarity with and understanding of science concepts among U.S. Latinos, and (2) demonstrating engagement activities such as talking with friends/family about the presented topics, and/or seeking out additional information. It will furthermore assess the extent to which listeners and viewers find the Hispanic researchers featured in the programs to be effective communicators and the importance they assign to hearing from Hispanic researchers themselves. It will look at whether and how the programs are effective selecting topics with immediate relevance to listeners'/viewers' everyday lives. Finally, the evaluation will gather information about listeners'/viewers' demographic and background characteristics, including their country of origin, degree of fluency in Spanish, reasons for preferring Spanish media, number of generations in the U.S., reasons for tuning into the programming, efforts to recommend the programs to others, and the likelihood of continuing to listen to or view the programs in the future.